Generalized Regression Modeling of Ordinal and Bounded Response Data

Abstract

0073044

This research aims to develop new statistical methods, inference
and theory for regression modeling of ordinal and bounded
data. Recent work indicates a strong possiblility of unifying
the most commonly used ordinal models and extending them to a
broader class of models. A unified approach will lead to comprehensive
and flexible ordinal regression modeling. Further this line of
research is directed at developing improved methods for
temporally and spatially correlated ordinal data. Bounded response
data are common in many applications. The second part of this
project will extend general regression methods and inference methods
for bounded response data. Parametric and semi-parametric methods
will be developed to model correlations among bounded responses.
Modern computing algorithms such as Markov Chain Monte Carlo
provide the means for developing software for correlated ordinal
and bounded response data.

Ordinal modeling has widespread applicability in the social
sciences and medical studies. Moreover ordinal modeling has
recently emerged as an important tool for risk assessment in
environmental toxicology and in civil engineering applications
where the probabilities of events of different severity
need to be modeled. Bounded response data are common in
infrastructure studies, which use bounded condition scores,
e.g., 0-100 scale. The data may be correlated over time (e.g.,
the history of a road section) and space (e.g., neighboring road
sections are correlated). The methods being developed will improve
modeling and uncertainty assessments and will have applications
in many fields such as environmental risk assessment,
infrastructure management, transportation risk modeling and the
assessment of treatments for depression and other social
functioning disorders.